REU Site: Optics and Optical Materials

9605131 Henry The Physics Department at the University of Arkansas in Fayetteville proposes to establish a Research Experience for Undergraduates (REU) site in modern optics and optical materials. The REU site will build on an existing undergraduate program in Modern Optics for science and engineering majors. The program has targeted Historically Black Colleges and Universities in the region for student recruitment. Student participants will spend ten weeks in the summer working on research topics that include semiconductor waveguides, diode lasers, and photorefractive crystals. %%% The program will provide undergraduate students from the region with a research experience that will encourage them to pursue further education and training in modern optics, and eventually provide better trained students in this technologically important area. ***